Kinetic Strategies for Synthesis of Olefin Copolymers of Defined Sequence Distribution

The focus of this research is the preparation and study of new bridged metallocenes containing at least two active sites that differ in their copolymerization characteristics in order to produce alternating or blocky copolymers. The goals of the work are to develop a new family of ethylene/alpha-olefin copolymers of defined sequence distribution and to use the studies as a testing ground to evaluate the precise structural features of metallocene catalysts that control copolymerization characteristics.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Robert M. Waymouth of the Department of Chemistry at Stanford University. Professor Waymouth will focus his work on developing a new kinetic strategy for the synthesis of olefin copolymers of controlled sequence distribution. With the potential for the controlled preparation of new materials, the research has important ramifications for the polymer industry.